QUANTITATIVE ANALYSIS OF ION CHANNEL KINETICS USING HIGHER ORDER HIDDEN MARKOV MODELS

9403225 Auerbach This Small Grant for Exploratory Research will conduct a quantitative analysis of ion channel kinetics using higher order hidden markov models (HMM). Ion channels are proteins that regulate the electrical behavior of cells. The investigators will use the HMM method to study these channels, and will simulate these channels on a network of workstations, using parallel codes. This high risk project should help determine the applicability of the use of HMM for understanding ion channel kinetics. ***